A Computer Science and Engineering REU Site for Florida, Puerto Rico and Latin America

The primary goal of this NSF REU site proposal is to systematically increase
the graduation rate of undergraduate students and the enrollment in graduate
school by involving undergraduate students in state-of-the-art Computer
Science and Engineering research activities. This project emphasizes the
participation of minority students belonging to groups with significant
growth rates, in particular, Hispanic students from the University of Puerto
Rico Mayaguez, students from USF and other minority universities in Florida,
and students from Latin American countries. During a 10-week summer session,
participating students will learn to use tools and techniques to solve
current research problems in Artificial Intelligence, Robotics, Computer
Networks, and Digital Image Processing, as well as work on other research
projects in collaboration with the H. Lee Moffitt Cancer Center & Research
Institute, the Center for Urban Transportation and Research, and the Center
for Robot-Assisted Search and Rescue. After an initial week of formal
orientation on the topics of research methodology, literature searching,
research writing and presentation skills, participating students will spend
nine continuous weeks with a faculty mentor working to solve a well defined
problem in a selected area of interest. Formal and informal interactions
with other students, faculty members and industry members will also be
included in as students work on projects and attend social events.